Forty-First Annual Gaseous Electronics Conference; Minneapolis, Minnesota; October 18-21, 1988 (Physics)

The Gaseous Electronics conference is recognized as the principal annual meeting place for those working in a broad range of atomic physics. It is unique in that it spans the range from the most basic studies to applications. The topics discussed include basic processes important to discharges, arcs, and gas lasers, and will involve physicists, chemists, and engineers.